Mathematical Sciences: Harmonic Maps and Harmonic Functions

9626310 Li The proposed research deals with harmonic functions, and more generally, harmonic maps. Three related topics are to be pursued: harmonic maps between Hadamard manifolds, harmonic maps from possibly singular algebraic varieties, and harmonic functions on complete manifolds. In particular, the investigator aims to work on the following conjecture due to Yau: the set of harmonic functions of k-th order polynomial growth, for any non-negative integer k, must be of finite dimension on a manifold with non-negative Ricci curvature. Harmonic functions appear as components of complex-valued analytic functions; as such they have a rich structure theory. In applications, they arise as solutions to various classical partial differential equations, and can be used to describe the heat flow on a lamina, tension and area-minimizing surface configurations, and so forth.